U.S.-Australia Cooperative Research: Ecological Genetics ofHabitat Selection in Drosophila.

This award will support collaborative research among Dr. James C. Fogleman of the University of Colorado-Denver, Dr. William T. Starmer of Syracuse University, and Dr. James Barker of the University of New England, New South Wales, Australia. The maintenance of genetic variability in natural populations is considered a prime question of population genetics and evolution. These parallel research programs in Australia and the United States on the population biology of Drosophila and microorganisms (bacteria and yeasts) which reside in cacti provide an excellent model with which to investigate genetic variability under natural conditions. Specifically, this research involves field tests of the genetic consequences of habitat selection by Drosophila for yeast resources. The project represents excellent collaboration between the Australian group, with its international reputation in both theoretical and empirical population genetics of Drosophila. Dr. Starmer is recognized as a leading authority on naturally occurring yeasts, and Dr. Fogleman has extensive experience in the role of cactus chemistry in this ecological system. The research represents a coordinated and cost-sharing approach to produce results expected to make an important contribution to improved understanding of genetic variability in natural populations.